Faculty Development Program

9353685 McKenney I recommend that we continue for one year the grant to AACC which underlies the AACC/NSF Fellows Program and which will generate a pool of outstanding community college faculty in science and engineering for participation in activities that are of service to community colleges and improve the design of NSF programs such as those in technician education, human resource development, dissemination, and systemic change. I recommend the requested budget of $56,822. ***